Mathematical Sciences Computing Research Environments

The Department of Computer Science at the University of Georgia proposes to trade-in its intel iPSC/2 D4 hypercube for an intel iPSC/860 Model 8 supercomputer system (see specifications in part V). This equipment will be dedicated to the support of research in mathematical sciences. The equipment will be used for several research projects, including in particular: (i) Dr. T. Taha (Computer Science Department) for developing parallel algorithms for Inverse Scattering Transform IST numerical schemes for solving both one dimensional and multidimensional nonlinear partial differential equations. These equations arise in many areas of application including nonlinear optics, signal propagation, plasma physics, etc. (ii) Dr. S. Cater and Dr. R. Robinson (both from the Computer Science Department) for developing a prototype computing environment on an Intel iPSC/860 supercomputer based on the GNU C++ compiler and libraries. The objective is a system which is productive for the user and effective in the exploitation of parallel computing resources. (iii) Dr. D. Gordon (Computer Science Department) for developing a parallel algorithm for solving large sparse matrices using conjugate gradient algorithm. (iv) Dr. A. Granville (Mathematics Department), for better understanding of the distribution function of the number of integers, in intervals of length z, that are free of prime factors < y. Sieving different intervals in parallel will speed up the computations considerably. (v) Dr. J. W. Smith (Computer Science Department), for developing a general parallel method for the reduction of boolean (bit) matrices.